AToL: Assembling the Tree of Life: A Meeting for PIs and Co-PIs

Project Summary
Brent Mishler
EF 0502081

Proposal for the first meeting of the PIs of the Assembling the Tree of Life Program

One of the most profound ideas to emerge from biological research over the last decade is
the realization that all life, from the smallest microorganism to the largest vertebrate, is
connected through phylogenetic relatedness to form a single, vast evolutionary tree, the Tree of
Life.

In 2001, the National Science Foundation funded one round of tree of life grants in the
Biocomplexity Program (GEN-EN), and then beginning in 2002 has so far funded three annual
rounds of grants in its "Assembling the Tree of Life Program," on topics ranging across the Tree.
An ITR grant was also funded as part of this effort (known as CIPRES). Now is a good time to
take stock of these projects, determine what works and what doesn't, explore new approaches for
dealing with the vastly expanded data begin generated, and share ideas among the three cohorts
of PIs and co-PIs. This supplemental proposal requests funds to hold a meeting of all PIs and co-
PIs of the AToL grants and CIPRES, November 19 - 21, 2004, at NSF in Washington, DC.

Goals of meeting:

1- Sharing of information among the current PIs and co-PIs about common goals and
obstacles.
2-The establishment of a coordinating structure across the separate AToL programs.
3- Clear understandings developed between CIPRES and the AToL grants, to coordinate
informatics efforts across AToL.
4-New ways found to increase linkages between AToL and other efforts (at NSF, elsewhere
in the US government, or internationally) in such areas as monographic taxonomy
(e.g., PEET and REVSYS), ecology (e.g., LTER and NEON), evolution &
development, physiology, and genomics
5- A better picture developed of where AToL should go in the future, both as individual
projects and in terms of future grants and initiatives.

Intellectual Merit. The Tree of Life provides the framework for much of our modern
understanding of biology because it reveals the diversity of life as well as the historical basis for
similarity and differences among organisms. The convergence of three important developments:
(1) conceptual and methodological advances in phylogenetic analysis; (2) the rise of comparative
genomics with its vast quantities of data; and (3) rapid advances in information technology and
processing, have now made possible the construction of a robust Tree of Life depicting the
genealogical relationships of all known species.

Broader Impacts. Increased knowledge of phylogenetic relationships will improve
human health, push back the frontiers of comparative developmental biology, meet threats to
agriculture and forestry from invasive species and pests, and improve management of our natural
resources. Without substantial growth in our knowledge of the Tree of Life, it will become
increasingly difficult and inefficient to manage, understand, and manipulate biological
information held in numerous databases worldwide, including the burgeoning information from
the genomic sciences, to build our understanding of the relationships among them. The proposed
meeting will greatly enhance coordination of this effort.